POWRE: Complex analysis and Representation Theory

In the fall of 2001, MSRI will hold a special program on "Integral Geometry and Represntation Theory." I was invited to be a co-organizer of this program. I am confident that this program will have valuable impact in the development and "recapture" of some important analytic problems in representation theory and its applications. For this reason, I would like to spend the whole semester at MSRI. The POWRE grants will give me that opportunity. My research activities will consist of four concrete problems in topics related to the MSRI program on which I'll be working.

This POWRE project is jointly supported by the MPS Office of Multidisciplinary Activities (OMA) and the Division of Mathematical Sciences (DMS).